Belmont Forum Collaborative Research Food-Water-Energy Nexus: Building Capacity for Integrated Governance at the Food-Water-Energy Nexus in Cities on Water

Many cities across the globe are facing difficult challenges managing their food, water and energy systems. The challenges stem from the fact that the issues of food, water and energy are often tightly connected with each other, not only locally but also globally. This is known as the Food-Water-Energy (FWE) nexus. An effective solution to a local water problem may cause new local problems with food or energy, or cause new water problems at the global level. On a local scale, it is difficult to anticipate whether solutions to one issue in the nexus are sustainable across food, water and energy systems, both at the local and the global scale. Innovative solutions that encompass the nexus are particularly important to enable cities to better manage their food, water and energy systems and understand the benefits and tradeoffs for different solutions.

This award supports U.S. researchers participating in a project competitively selected by a 29-country initiative through the joint Belmont Forum- Joint Programming Initiative (JPI) Urban Europe. The Sustainable Urbanization Global Initiative (SUGI)/Food-Water-Energy Nexus is a multilateral initiative designed to support research projects that bring together the fragmented research and expertise across the globe to find innovative solutions to the Food-Water-Energy Nexus challenge. The call seeks to develop more resilient, applied urban solutions to benefit a much wider range of stakeholders. The rapid urbanization of the world's population underscores the importance of this focus. International partners were invited to develop solutions for this challenge. The funds requested will be used to support U.S. participants to cooperate in consortia that consist of partners from at least three of the participating countries and that bring together natural scientists, social scientists and research users (e.g., civil society, NGOs, and industry). Participants from other countries are funded through their national funding organizations.

This project seeks to help better understand the linkages between food, water and energy systems, and to help facilitated cooperation and knowledge exchange between stakeholders. The project seeks to evaluate the efficacy of different citizen-driven knowledge creation techniques and this knowledge is used in local planning procedures in three mid-size cities located near water bodies in USA, Romania and Poland. The project will employ an Urban Living Lab framework to develop socio-technical interfaces and decision support tools based on citizen science approaches and participatory Geographic Information Systems.